Computer Research Equipment (Computer Science)

Equipment (workstations) will be provided for research areas including: 1. Software Design and Intelligent Design Tools 2. Software System Specification, Analysis and Evaluation 3. Program Development Support 4. Configuration Management and Change Control 5. Software Engineering Database and Technical Decision Support Systems This award will enhance the capability of the Univ of Illinois-Urbana to perform mainstream research in important areas of computer science.